A Project to Improve Science Educatin in Eastern North Carolina for Students With Disabilities.

The objective of this project is to increase access to science careers for student with disabilities. The project staff is disseminating information in the Eastern North Carolina region to science teachers on the teaching of students with disabilities and about the career opportunities in science and technology for students with disabilities. They are actively recruiting students in the area for careers in science and technology, and are providing science teachers in the region consultation on problems encountered by students with disabilities in science courses and laboratories. A lending library of adaptive technologies is being established and will serve the region's junior and senior high schools as well Eastern North Carolina's community colleges. The institution's track record speaks well for the success of this current project. In the Fall of 1986, East Carolina University established the Science Institute for the Disabled, and has made extraordinary efforts to provide higher education for students with disabilities.